CC* Integration-Large: MAINTLET: Advanced Sensory Network Cyber-Infrastructure for Smart Maintenance in Campus Scientific Laboratories

Studies show that in some industry and scientific environments, between 15 and 60 percent of the total costs originate in maintenance activities, and about 33 cents of every dollar spent on maintenance in the US is wasted because of unnecessary and preventable maintenance activities. The cost of scientific instruments’ maintenance is even greater in universities because the scientific instruments, and associated support equipment, such as vacuum pumps, serve diverse students, staff, and faculty populations for educational and research purposes over much longer periods with smaller budgets than in industry. Instruments’ down-time greatly limits research productivity and programs. Hence, MAINTLET investigates an advanced sensory network cyber-infrastructure with modern AI-guided big data methods that helps the campus scientific laboratories to see patterns that indicate the right time to purchase kits, parts, and services, and minimize opportunity cost due to down-time and all repairs and maintenance.

MAINTLET enables cost-effective, scalable, and sustainable reactive, preventive and predictive maintenance solutions for scientific instruments. MAINTLET provides two important indicators. For preventive and predictive maintenance, simulations identify potential instrument failures, using data from instruments’ surrounding sensors such as acoustic sensors, water flow sensors, and contact water temperature sensors. These data help predict in real-time, using AI techniques, when a pump may need condition-based preventive maintenance. For reactive maintenance, trained failure detectors detect failures in real-time. MAINTLET includes sensors; edge devices such as Raspberry Pis executing reactive maintenance services; WiFi and Zigbee access points and networks interconnecting sensors, edge and cloud devices; and a private cloud with predictive and preventive maintenance services.

The impact of MAINTLET is in terms of decreased instrument failures and down-time and hence speed-up and accuracy of scientific discoveries, and in terms of security (as uncertainty about failed scientific lab equipment can cause both cyber and physical harm). MAINTLET’s various insights are taught in undergraduate and graduate courses to students from Materials Science & Engineering, Computer Science, and other departments. MAINTLET is presented at the Advanced Materials Characterization Workshop with instrument vendors’ exhibit, “Nano at Illinois” event, and other scientific venues. During the summers, the Worldwide Youth in Science and Engineering program for high school students, and other outreach programs, organized within the Grainger College of Engineering, receive a series of MAINTLET lectures.

MAINTLET’s website https://t2c2.csl.illinois.edu/projects/maintlet includes links to data, code, results, and simulations as they are developed. The project-related information will be accessible for at least five years after the project ends.